Comprehensive Revision of Rate Constants in Cationic Polymerization

The focus of this research is to extend diffusion clock methods to determine the rate constant of propagation, ionization (activation) and deactivation in the living polymerization of isobutylene, styrene and styrene derivatives, as a function of solvent, temperature and catalyst. Knowledge of these rate constants is fundamental for overall control in cationic polymer synthesis and also important in new catalyst development.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Dr. Rudolf Faust in the Department of Chemistry at the University of Massachusetts, Lowell. Professor Faust will focus his work on determining the absolute rate constants in cationic polymerization. These studies will promote renewed research in catalyst design and thus lead to the production of more efficient polymerization catalysts.